VPW: Copper Speciation Studies at Simulated Particulate Surfaces Using Electrochemical and Spectroelectrochemical Methods of Analysis (Analytical/Surface Chemistry)

Experimental methods will be developed to enable the study of copper speciation at simulated natural water particulate interfaces. A novel experimental model is presented to permit analytical determination of interfacial phenomena in situ. The model consists of a stable polymer microemulsion containing immobilized reactive ligands on its surface and is intended to simulate pertinent features of organic-coated natural water particulates. Interdigitated array electrode electrochemistry methodology will be developed to determine Cu(I) generated by complex photolysis. This will result in enhanced interdigitated array methodology and determination of copper-amino acid photolysis rates. Spectroelectrochemical methods will be developed to optically determine complexed copper concentrations following electrochemical generation of Cu(II). The methods will have general utility to speciation studies at surfaces and will be applied to the study of copper-amino acid complex formation and photolysis. This advances interfacial spectroelectrochemical methodology and knowledge of equilibrium speciation of copper-amino acid complexes on surfaces. The project furthers VPW program objectives to provide opportunities for women to advance their careers in science or engineering through research, and to encourage other women to pursue careers in these areas through the investigator's enhanced visibility as a role model on the host campus. The proposed activities which contribute to the second objective include: developing and teaching a new course on Aquatic Chemistry; presenting a guest lecture on environmental chemistry; starting a new curriculum in Environmental Chemistry; and providing research guidance and mentoring to students.